Dynamic Modeling and Control of Low-Velocity Friction

This research project deals with an analytical and experimental study of friction in machine tools. The experimental aspects include the design and fabrication of a double-shear friction apparatus for active control of both sliding velocity and normal force, and the collection of data at the friction interface for a variety of materials and lubricants. The analytical component of the research project utilizes the test data for developing history- dependent friction models. There models are used to study the design and analysis of controllers for high-fidelity motion, including the development of stability criteria, and design of model-based and adaptive compensators. These models are applied to the design and performance evaluation of passive and active friction dampers and structural joints. Analytical techniques such as perturbation theory and nonlinear dynamical system theory are used. The results of this research lead to a better understanding of low-velocity motion control such as required for high-precision machines in manufacturing, and improvements in the performance of friction dampers used in turbo machinery and damping joints used in flexible structures.*** //